OmniBus: A Radio-outreach Science Program for Children

This project will produce and evaluate a pilot program with supplementary print material for a half-hour science radio series for Children. The series will target children 8 to 10 years old, but will be designed to include the entire family. Each program will consist of educational songs, interviews, stories, call-in questions and "hands-on" experiments. The support material will provide additional science activities that may appropriately be conducted in the home and in classrooms. The budget for this pilot phase is $266,521 of which $215,940 is being provided by the NSF. The full series, once produced, is planned to be broadcast through the Children's Radio Network. The AAAS will be responsible for development and management of the outreach component of the project.//